VINES: Track 1: NSF-JST: SENRIGAN: Infrastructure-based autonomous driving for micromobility

Micromobility, the use of small, lightweight vehicles such as e-scooters, delivery robots, and personal mobility devices for last-mile transportation, is emerging as a key component of future smart cities, enabling cost-effective deliveries and passenger transport in both indoor and outdoor environments. Today’s autonomous micromobility vehicles (MMVs) rely primarily on their own onboard sensors for perception and navigation. However, this approach has three key limitations: the small size, power, and cost constraints of MMVs preclude the sensors and computers used in conventional autonomous vehicles; MMVs’ low vantage points create small perceptual “bubbles” frequently occluded by pedestrians, vehicles, and other obstacles; and onboard autonomy alone lacks the city-scale situational awareness and near-future prediction required for safe navigation in dense, dynamic environments. To overcome these limitations, this US-Japan project, involving Rutgers University, Saitama University, Shibaura Institute of Technology, and Keio University, proposes SENRIGAN (Japanese for “clairvoyance”), which replaces the vehicle-centric paradigm with an infrastructure-integrated design powered by artificial intelligence, offloading perception, prediction, and situational awareness to edge/cloud infrastructure via intelligent Next Generation (NextG) wireless communications.

To realize this infrastructure-integrated vision, SENRIGAN is organized into three research thrusts. The first thrust creates the core sensing, prediction, control, and security capabilities for infrastructure-assisted micromobility, including predictive dynamic-map generation, world models for multi-agent interaction prediction, lightweight onboard control that fuses infrastructure predictions with local sensing, and cyber-physical security mechanisms for resilient operation. The second thrust designs an intelligent NextG multimodal communication layer supporting both high-volume sensor data aggregation from infrastructure to edge servers and low-latency, reliable dissemination of predictive guidance to MMVs. The third thrust integrates, validates, and evaluates the complete system through simulation, security stress testing, and at-scale experimentation on complementary testbeds in the US (NSF COSMOS) and Japan (Haneda Innovation City).

The project aims to contribute to safer, more affordable, and more accessible micromobility by reducing the sensing and computing burden on individual vehicles. The resulting methods could support delivery robots, campus and community mobility services, and assistive devices where vehicle-centric autonomy is too costly or unreliable. Research artifacts, including algorithms, software components, datasets, and evaluation methods, will benefit communities in networked robotics, smart infrastructure, NextG systems, and cyber-physical security. Educational activities will engage undergraduate, graduate, and high school students in interdisciplinary training spanning wireless networking, robotics, artificial intelligence, and secure autonomous systems, with the US-Japan collaboration providing exposure to international research and real-world testbed experimentation.